Postdoctoral Research Fellowship in Biological Informatics for FY-1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of ecosystem studies and is entitled "The response of soil carbon turnover and storage to global climate change: a synthesis of modeling and radiocarbon data." Dynamic modeling is a powerful approach to understanding carbon accumulation and turnover in terrestrial soils. This study combines carbon turnover estimates from radiocarbon measurements from a range of sites with modeling simulations to validate model predictions of the exchange of carbon between soils and the atmosphere in response to global climate change.